Development of a Computational Chemistry Laboratory

A computational chemistry course has been recently approved at Western Illinois University. To implement this curricular addition, 10 microcomputers with associated software are now available for student use in that course, and in addition are being used for data acquisition, storage, and analysis in other chemistry courses: instrumental analysis, physical chemistry, advanced inorganic chemistry, and junior and senior research projects. The major goal of this effort is to thoroughly integrate microcomputers into the chemistry curriculum.